Recent Developments in Higher Dimensional Algebraic Geometry Conference

The Johns Hopkins University Department of Mathematics, together with the
Japan-U.S. Mathematics Institute (JAMI), will hold a conference and
workshop in March 2006 under the title "Recent developments in higher
dimensional algebraic geometry". The main focus of the proposed activity
will be birational geometry. Finding good birational models of algebraic
varieties and understanding the way these appear is the main achievement
of the minimal model program. The activity will cover related topics of
interest: derived categories, Fano varieties, Mori-Fano fiber spaces,
explicit 3-fold geometry, minimal log discrepancies, singularities,
rational curves and connectivity.

Geometry is one of the oldest mathematical subjects. The Greeks were
describing geometrical objects using congruence (of segments, angles,
...) and incidences (collinearity, tangency, ...). Congruence evolved
into the modern-day differential geometry. Incidences evolved into
algebraic geometry simply by replacing geometrical shapes by the
equations defining them. The objects of study of algebraic geometry are
called algebraic varieties. Understanding the structure of algebraic
varieties is of fundamental importance from both the standpoint of
algebraic geometry alone, and from that of the related disciplines and
areas of application - mathematical physics, computational geometry,
number theory, and others. Knowledge of algebraic varieties is also
important in applied fields, such as optimization, control, statistics,
economics and bioinformatics, coding, complexity and communications.